Mitigation of Impacts of Ocean Sciences Research on Marine Mammals, 2006 - 2008

0614645
Walsh
This 3-year award to Columbia University in the City of New York provides support to undertake environmental analyses, prepare small take applications, provide personnel to carry out environmental observations and prepare reports on environmental impacts during NSF-funded scientific research programs using seismic sources and related instrumentation on R/V Marcus G. Langseth, a research vessel operated by the university's Lamont-Doherty Earth Observatory of (LDEO) as part of the University-National Oceanographic Laboratory System research fleet.
***